Intervention and Rehabilitation After Spinal Cord Injury

9704116 Gracia-Rill The overall goal of this program project is to develop and evaluate multiple, new, synergistic strategies for intervention and rehabilitation after spinal cord injury. The premise of this application is that any approach to successful intervention and rehabilitation after SCI will require the utilization of a variety of different strategies. Thus, this program project grant will utilize three different interventions and test their effectiveness in the recovery of motor function in spinalized cats. The strength of his project is that it integrates careful studies on the functional integration of the neural transplants as well as pharmacological and electrical stimulation on the enhancement of mobility.